Failure Mechanisms in Artifically Layered Nanocomposites: An Analytical, Computational, and Experimental Investigation

9713762 Zikry Greater understanding of and accurate predictive capabilities of nanomicrostructurally induced inelastic failure modes in artificially layered materials is obtained by: (i) synthesis and processing of layered nanostructures by laser physical vapor deposition and magnetron sputtering to ascertain the effects of processing defects on material failure; (ii) development of a three dimensional multiple- slip crystal plasticity constitutive formulation that accounts for the evolution of immobile and mobile dislocation densities in the crack-tip region along film interfaces and grain-boundaries in each layer; (iii) large- scale three dimensional computational and experimental investigation of dislocation pile-ups and slip- incompatibilities for a detailed investigation of interfacial and transgranular crack growth as a function of film interfaces, high angle grain-boundaries, lattice mismatch strains, and nano grain-sizes; and (iv) novel in- situ TEM and SEM measurements and computational analyses of crack growth and void coalescence in layered nanocomposites, and development of scaling methodologies for mechanical testing. The realization of these advances significantly contributes towards improved capabilities for developing innovative processing and material synthesis techniques for a new generation of epitaxially layered nanostructures for optoelectronic and semiconductor devices. ***